Complex Flows In Porous Media

Fluid flows in porous materials are ubiquitous in natural, industrial
and biological settings. These range from relatively simple flows
through homogeneous media with uniform and well-characterized properties
to very complex flows in strongly heterogeneous media, or in reactive
and/or deformable porous media in which the thermochemistry of the fluid
and the dynamics of the flow can significantly alter the properties of the
media which in turn then further complicate the flow. Three such complex
flows form the scientific basis for this proposal. The first, a materials
science application, arises during the solidification of a ternary alloy.
Here the porous medium is made up of dendritic crystals that solidify or
melt depending on local thermodynamic conditions of the interstitial fluid.
The fluid flow and solidification processes are tightly coupled in this
reactive porous medium. The second project arises in response to interest
by environmental scientists in developing strategies for the removal or
containment of groundwater contaminants in nonhomogeneous porous media.
The proposed work addresses gravity-driven flow through spatially nonuniform
porous media using asymptotic homogenization methods in order to identify
effective media properties which characterize a relatively complex porous
media by a much simpler description. The third project involves fluid flow
through a porous medium whose porous matrix can be deformed by the fluid
moving through it. Such flows appear in soils, in tissues, organs and
tumors in the human body and in industrial applications such as injection
molding, filtration and inkjet printing. The proposed work attempts to
extend mathematical modeling tools for inkjet printing technology and to
connect these ideas to other application areas.

The proposed research is of an interdisciplinary nature that through
the use of applied mathematical techniques addresses directly problems
in materials processing, environmental science and industrial printing
technologies. Applications impacted directly by this research include
industrial alloy processing, strategies for the removal or containment of
groundwater contaminants and related environmental hazards, and flows
arising during industrial applications such as inkjet printing. This
work may indirectly impact the understanding of geophysical flows that
occur in the earth's core or during the formation and melting of sea ice,
other industrial applications such as injection molding and filtration,
and biological applications involving the transport of fluid in tissues,
organs and tumors in the human body. The work proposed by the PI at
George Mason University will involve collaboration with researchers at
the University of Tennessee, the University of North Carolina as well
as with researchers in the United Kingdom and at the National Institute
of Standards and Technology.